U.S.-Norway Cooperative Research: Evaluation of Potential of Earth Resistivity in Norway

This award supported by the Division of International Programs allows Mary J. Roth of Lafayette College to collaborate with research staff members of the Norwegian Geotechnical Institute in Oslo, Norway. The project will apply Roth's expertise with multi-electrode earth resistivity testing into investigations of slope stability, leakage in dams and tunnels, and the study of frozen soils in Norway and other locations in Europe.

Earth resistivity testing is being rapidly incorporated into geotechnical engineering investigations for a wide range of projects. The results of this research will be a better understanding of the uses, reliability, and limitations associated with earth resistivity testing as well as a better assessment of the applicability of this technique in new engineering applications.